Optoelectronic Transmitters for Medical Ultrasound Transducers

9415342 Smith The research proposed in this application is concerned with an improved 2-D ultrasonic transducer by using opto- electronic transmitter technology to replace power amplifiers and coaxial cables. Low power diode lasers, optical fibers and photo conductive switches will be used in the new system. The research has the potential to eliminate the bulky transducer cables now used in high density ultrasonic arrays, and thus allow the system to be more flexible and to consist of more transmit channels. ***